Computers in Undergraduate Geometry and Applied Analysis

This project will support the purchase of workstations and software to improve instruction in upper division mathematics and applied mathematics courses. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the goal of supporting projects to develop new or improved instrument-based undergraduate laboratory courses in science, mathematics, or engineering. The Instrumentation and Laboratory Improvement Program provides matching support for the instrumen- tation necessary to implement undergraduate instructional improvements at U.S. colleges and universities. In particular, the main objective of this project is to provide upper division students in several courses with powerful, user friendly mathematical software which combines numerical, symbolic, and graphics capabilities in one package. The students will be able to experiment with recently learned ideas, and to visualize solutions to problems they have worked.